ACCESS - Advanced Computational Curriculum for Engineering and Science Students

This one-year project is developing an upper division course in numerical methods that incorporates the methodology of advanced scientific computing. Until now the availability of these high performance computational tools has been almost exclusively limited to advanced research and development projects. This project is demonstrating the viability of exposing undergraduates to modern scientific computing. The hallmark of the project is the development of a library of interdisciplinary case studies, so that students can study basic numerical methods in the context of a significantly sized scientific or engineering problem using real data. These form the basis of group project work by students organized into interdisciplinary teams.This NSF-funded project is the first step in a larger curriculum development effort designed to extend a theme of computation throughout the typical undergraduate science and engineering program, and in particular to bring experience in advanced scientific computation to undergraduates.NSF grant funds for equipment are being matched with funds from non-federal sources.